Enhancing Teacher and Student Understanding of Engineering in K-5 Bilingual Programs

Engineering is part of everyone's local community and daily activities yet opportunities to learn about engineering are often absent from elementary school classrooms. Further, little is known about how teachers' and students' conceptions of engineering relate to aspects of their local community such as language and culture. Knowing more about this is important because students' perceptions of mismatch between their personal culture and the engineering field contributes to the continued underrepresentation of minorities in the profession. This mixed-method exploratory study will examine how bilingual teachers working in elementary schools in Massachusetts and Puerto Rico understand the role and skills of engineers in society. In turn, it will examine how teachers adapt existing engineering lessons so that those activities and concepts are more culturally and linguistically accessible to their students. This project is funded by the Discovery Research preK-12 program (DRK-12), which seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

Consistent with the aims of the DRK-12 program, this project will advance understanding of how engineering education materials can be adapted to the characteristics of teachers, students, and the communities that they reside in. Further, its focus on bilingual classrooms will bring new perspectives to characterizations of the engineering field and its role in different cultures and societies. Over a three-year period, the team will investigate these issues by collecting data from 24 teachers (12 from each location). Data will be collected via surveys, interviews, discussion of instructional examples, videos of teachers' classroom instruction and analysis of artifacts such as teachers' lesson plans. Teachers will collaborate and function as a professional co-learning community called instructional rounds by participating and providing feedback synchronously in face-to-face settings and via the use of digital apps. Project findings can lead to teaching guidelines, practices, and briefs that inform efforts to successfully integrate bilingual engineering curriculum at the elementary grades. This work also has the potential to create professional development models of success for K-5 teachers in bilingual programs and enhance engineering teaching strategies and methods at these early grade levels.